ITR/SY+SI:The System Architecture of a Computing Utility

Computing services in the future should become just as available and easy to use as any of the modern
utilities: power, water, or telephone service. A compute utility should work reliably and invisibly,
providing users with simple, efficient access to their data and individualized computing environments
anywhere in the world. Data kept in the utility may be private, publicly available, or shared between
designated parties.
Our proposed compute utility architecture is based on the idea of a compute capsule, which captures
the entire logical state of an active computing environment. A capsule is portable, persistent,
host-independent, self-contained and can be suspended on disk, arbitrarily bound to different machines,
and transparently resumed. Compute servers in a utility run a small trusted computing base, which
manages the compute capsules like a cache. Users' capsules can be run on any of the compute servers in
the utility and are typically run on local machines for enhanced interactive performance. Capsules provide
users with customizabililty as well as a guarantee of isolation from other users. As persistent objects that
can be shared, duplicated and version-controlled, capsules can be easily managed and administered.
The compute utility model has significant advantages over our current environment. First, instead of
requiring end users to procure, administer and upgrade their equipment individually, resources of a utility
are shared and managed centrally by experts, thus resulting in a more efficient system. Second, a global
utility allows users efficient access to their computing environment everywhere. They need not juggle a
large number of different interfaces and deal with the discontinuities as they move between home and work
every day. Third, a professionally managed compute utility designed to support global mobility and
sharing can provide greater security than our current environment. In contrast, today novice users are
responsible for keeping their systems secure, and the lack of adequate support for sharing and mobility
leads to practices that jeopardize security. Fourth, the infrastructure of a utility serves as an excellent
platform for several emerging computing trends: software hosted remotely by application service
providers, support of ubiquitous access devices, and large-scale distributed computing.
The goal of this research project is to investigate the viability of a compute utility and to lay the
technical foundation for such an infrastructure. The techniques developed can also be applied to manage an
institution's distributed resources.
First, we will investigate the concept of capsules fully by studying their design and applications.
Capsules can be implemented at the machine, operating system and application level; trade-offs between
these different approaches will be studied. We will also explore novel uses of capsules: capsules can be
used to run untrusted software; they can provide secure and shared environments for group projects;
capsules can also serve as pre-installed software packages ready to run on any machine. We will develop
the associated tools to make capsuleseasy to use.
Second, we will develop the technologies to ensure security in a compute utility. Security will be
provided at three levels: a small trusted kernel that provides isolation between capsules and monitors
capsules for added security; the use of certified capsules to create trusted computing environments; data
security will be provided by encryption, and sharing will be supported by a flexible key management
scheme. We plan to conduct a careful analysis of the vulnerabilities of the system.
Third, this research will produce the technologies useful for creating scalable, efficient, and easily
maintainable compute utilities. They include techniques for managing machines in a globally distributed
environment by treating them as caches of capsules, and techniques that combine capsule caching and
remote display technology to support global mobility and sharing.
This research will develop a prototype compute utility to validate the technology developed. To make
extensive experimentation possible, the prototype will support legacy software. The experiments will be
designed especially to address the information technology needs of universities.
Computer systems have gone through two major eras, time-sharing on mainframes and personal
computing. The success of this research may usher in a new era of compute utility and have a significant
impact on our future computing practice.